Radiative Muon Capture and Medium Energy Photon Experiments (Physics)

A continuation of research at (inter)national accelerator laboratories performing experiments in the area of intermediate energy physics is proposed. Particle experiments are performed at the TRIUMF accelerator in Canada. Presently underway is a measurement of radiative muon capture in hydrogen. This measurement has never before been made due to the small branching ratio, a few parts in one-hundred-million. The hydrogen measurement will provide a clean determination of the induced pseudoscalar coupling constant of the semileptonic weak interaction. The nuclear RMC measurements, data taking completed, are now being analyzed. They check on renormalization effects in nuclei. The other part of the program centers on photonuclear experiments with a tagged polarized gamma ray beam. These experiments have been initiated at the Laser Electron Gamma Ray Source (LEGS) being constructed at Brookhaven National Laboratory. This is a unique new facility in which every photon, at a rate of ten million per second is tagged and polarization of roughly ninety percent both linear and circular is expected. The first experiments will study deuteron photodisintegration by detecting the recoil proton. The second set of experiments will study Compton scattering and neutral pion photoproduction from protons and deuterons with polarized photons. The recoil proton or neutron and photon will be detected in coincidence. These measurements enable the determination of the electric and magnetic polarizabilities of the nucleons.